Charge Coupled Device (CCD) Camera for Undergraduate 16-inchTelescope

Charge Coupled Device (CCD) cameras are presently playing a major role in the collection of astronomical data by professional astronomers. The CCD camera allows more rapid collection of data with higher quantum efficiency, larger dynamic range, and a better linear response than traditional photographic methods. Astronomy departments which intend to train their astronomy majors in modern techniques must include the collection, analysis, and interpretation of CCD data. This grant provides funds for a CCD system (Photometrics Star I system, Photometrics software and IEEE- 488 interface, Photometrics optional ultraviolet response- enhancement coating, filter wheel, and computer with Ethernet card) for the University of Texas at Austin undergraduate astronomy major program. The CCD system will be used on the 16-inch telescope, located on the Austin campus, for projects which include CCD photometry and astronomy. The activities developed for it will be published in a new edition of the currently used laboratory manual. This system will provide astronomy students with tools to prepare them for the pursuit of careers in modern observational astronomy. The University of Texas is providing one half of the required funds.